SGER: Development of a Space Weather Policy Curriculum

This is an exploratory research effort to establish a Space Weather Policy specific curriculum on the graduate level. The policy structure of the National Space Weather Program is researched and distilled, the syllabus is created, and the class taught. The class is to be taught in the fall semester of 2004 at George Mason University. The purpose of the project is to establish an educational means of associating researchers in a broadly inter-disciplinary national initiative with their policy guidance.